RUI: Diversity and Dynamics of Forest Butterflies in Ghana's Indigenous Sacred Groves and Forest Reserves

Abstract
DEB 0417367
Bossart

This project will document the butterfly biodiversity of relict forest
'islands' from one of the most biologically unique, critically imperiled,
and understudied regions in the world; the tropical forests of Ghana. The
project emphasizes survey and conservation of forest reserves and
irreplaceable sacred groves. Sacred groves are isolated forest areas that
have been protected for hundreds of years by indigenous peoples and that
were within living memory part of continuous forest. Major goals are to
1) investigate how forest fragmentation impacts communities of
forest-dependent species and to identify what factors promote their
persistence versus extinction, and 2) narrow the pervasive knowledge gap
that currently exists for the unique forest ecosystems of West Africa.
Butterflies are excellent models for evaluating the status of natural
communities in degraded landscapes because they show a wide diversity of
relative sensitivities to environmental change, are tightly linked to
ecological systems as both primary consumers (herbivores) and food items,
and are easily collected and identified. Primary field activities
associated with the project will occur over three years and include
regular and systematic survey of nine forest sites using baited traps and
net collections, intensive spot surveys of at least six additional unique
forest sites, measurement of forest characteristics at each site (e.g.,
size and canopy cover), and purposeful collection of caterpillars and
their food plant dependencies to amass much needed, but largely
nonexistent, information on species' biology and natural histories. The
project will 1) greatly expand our understanding of forest biodiversity in
tropical West Africa, 2) test broad ecological and biogeographic
hypotheses that have relevance beyond this particular system, 3) establish
a data and image-rich library of the Ghanaian butterfly fauna on the world
wide web, 4) make species checklists and summary findings rapidly
available to local communities and conservation agencies to facilitate
science-based conservation plans, 5) help solidify permanent reference and
museum collections in the host country, and 6) generate a reference
framework for future research in molecular biology, ecology, evolution,
and systematics.

The project emphasizes education, training, capacity building, and
cultural exchange. It is an international collaboration that includes
overseas research and professional opportunities for U.S. and Ghanaian
students and scientists, and involves cooperating specialists from the
U.S., Britain, Belgium, and Vietnam, and multiple institutions and staff
in the U.S. (Rose-Hulman Institute of Technology and Carnegie Museum of
Natural History) and Ghana (Forestry Research Institute of Ghana,
Kwame-Nkrumah University of Science and Technology, Ghana Wildlife
Division, and Nature Conservation Research Centre).

This award is co-funded by the Office of International Science and Engineering.